DNA Variation in Skeletal Samples from Utah and Integration with Archaeological Data to Refine the Numic Expansion Model

With National Science Foundation support, Dr. Steven Simms and his colleagues will analyze both skeletal and archaeological remains recovered in the area around the Great Salt Lake in Utah. In recent years the water level in the lake was extremely high and wave action resulted in the exposure of many prehistoric Native American burials. Associated with these are archaeological materials which permit the skeletal remains to be placed within a broader cultural context. In this project, two related kinds of analysis will take place. With the permission of the Shoshoni Nation the skeletal materials will be studied and DNA will be extracted from bone. With this information it will be possible to compare groups across time to examine the question of population continuity. The archaeological materials will also be studied to construct a chronology, assign cultural designations, and determine how lifestyle changed over time. Both archaeological and linguistic data suggest that at approximately A.D. 1350 a major change took place in the Great Basin. Prior to this time "Fremont peoples" practiced a partially settled agricultural way of life. In the following Late Prehistoric period agriculture was abandoned and both material culture and settlement pattern changed. Shifts in this direction - away from agriculture and back to older hunting and gathering practices - are unusual and the goal of this research is to gain insight into how and why this happened. This research is important for several reasons. First, it will provide data of interest to many archaeologists and physical anthropologists. Perhaps more importantly it is path-breaking work. Scientists are just learning how to extract DNA from bone and information from bone and more traditional archaeological sources has never been combined to address a question of prehistory. Thus the research is significant from a methodological perspective.